SBIR Phase I: Workflows to Enable Agile Virtual Enterprises (WEAVE)

This Small Business Innovation Research Phase I project will study the feasibility of building WEAVE (Workflows to Enable Agile Virtual Enterprises), an on-line service that allows any business to create and manage virtual enterprises using only an XML-enabled Web browser. WEAVE provides automated support to locate participating entities, negotiate for their services, plug them into an enterprise workflow using a graphical tool, and analyze the workflow for possible flaws. WEAVE manages these virtual enterprise workflows by dynamically choosing appropriate task schedules and supporting data interchange using XML document formats. Thus, WEAVE enables businesses to easily set up virtual enterprises with little infrastructure and minimal start-up and maintenance costs. This Phase 1 project will determine the operational specifications of WEAVE and ascertain its feasibility by prototyping its critical components. Phase 2 will then produce a fully functional WEAVE system based on results from Phase 1. Finally, Phase 3 will make WEAVE commercially available to enterprises --- large and small --- thereby significantly lowering the barrier for participation in virtual enterprises.